Computational Analysis of Viscoelastic Fluid Flow with Applications

This project is focused on the accurate, reliable numerical simulation of
viscoelastic fluid flow. Such fluid flows are ubiquitous in our every day
lives, from the flow of blood in our bodies to the production of polymeric
material (such as plastics). Calculations are routinely performed to simulate
such flows however the results are very limited due to the large number of
unknowns necessary to compute an accurate solution, and the often failure
of the solution algorithm to converge. This research will address these
problems by
(i) developing accurate and stable discretization algorithms, and
(ii) developing reliable solution algorithms for the resulting
linear/nonlinear algebraic system of equations.

Through our interactions with the (NSF sponsored ERC) Center for Advanced
Engineering Fibers and Film, results from this research will be immediately
available for incorporation into simulation software currently being developed.
Polymer processing is a multi-billion dollar industry. Improvements in the
accuracy and reliability of viscoelastic fluid flow simulations will
strengthen the USA's competitiveness in this important area by helping improve
current manufacturing processes.